Classification problems in foliation theory

A foliation F of a manifold M is a regular decomposition of the space
into connected submanifolds, usually with some assumptions that the
decomposition is smooth, and the decomposition is uniform -- either
there are no singular strata, or the singular strata themselves have a
foliated structure. The breadth of the study of foliations includes
all dynamical systems, an immensely broad topic in itself, so truly
classifying all foliations is quite impossible. The goal of this
project is to investigate three approaches to classification: 1)
classify foliations via categorical (in the sense of Lusternik and
Schnirelmann) decompositions and other "foliated cell" structures;
2) classify foliations up to homotopy of their transverse Haefliger
structure; 3) classify foliations in terms of the ergodic theory and
asymptotic properties of their leaves. The PI's study of the relations
between the second and third of these topics -- dynamical systems and
ergodic theory, and geometric and topological invariants of group
actions and foliations -- has been ongoing for more than 20 years with
support of the NSF, and resulted in many publications and advances in
the field. In the past three years, there have been further decisive
advances in each topic. The study of Lusternik and Schnirelmann
category of foliations, and its related ideas, is a very new field,
with great potential for advances. The fundamental connections between
LS category theory and Morse theory, motivate the study of the
connections between their foliated versions, and the classification of
transverse Haefliger structures. Success with this part of the proposed
research would result in truly fundamental new understanding of the
structure of foliations.

The study of foliations of manifolds began as a subject approximately
fifty years ago. The concept arises very naturally in many geometric
and topological problems, so it is not surprising that understanding
properties of foliations has become a fundamental aspect of the study
of many other subjects in geometry, topology, dynamical systems,
analysis and various areas of applied and theoretical physics. The
intellectual merit of the proposed activity includes advancing our
understanding of the structure of foliations, and developing new
techniques with broad applications in many fields. Success with this
research project will not just be measured by solving the proposed
problems, but also in opening the field up with new questions. The
broader impact resulting from the proposed activity includes enhanced
training of undergraduate and graduate students in mathematics,
collaborative research projects with postdoctoral investigators, and
international collaborations promoting research in mathematics. The
PI intends to continue working with graduate students and postdocs on
projects related to this proposal, and to promote the field via
conference talks and via the internet.